Enhancing the Microbial Ecology and Biogeochemistry Curriculum in Aquatic Biology and Ecology

The undergraduate program in aquatic biology is being strengthened by expanding the scope of treatment to include microbial ecology. The innovation, which involves the acquisition of a liquid scintillation counter, autoanalyzer, fluorescence microscope, and lab balance, makes use of experimental ecology as an educational vehicle to teach students about 1. important ecological processes mediated by microorganisms; 2. the microbial groups involved with specific processes; and 3. techniques for the assessment of microbial numbers, biomass, and nutrient cycling. A variety of experimental exercises employing the equipment are being integrated into the upper division courses of aquatic biology, ecology, and limnology. The exercises are designed to provide students with a broad coverage of microbial ecology. The university is contributing 122% of the award.